Export of Particulate Carbon in the Equatorial Pacific from 165 degrees E to 150 degrees W

9504202 MURRAY Measurements will be made of particulate carbon export production in the western equatorial Pacific at the equator and 165 degree E and the zonal gradient at the equator from drifting sediment trap samples. Comparison of this particulate flux with 15N-NO3 new production measurements will also enable estimates of potential carbon export as DOC. Participation in two cruises will determine the El Nino/non-El Nino variability and make a more accurate estimate of total export production from the equatorial Pacific. Both cruises are in collaboration with ORSTOM Noumea French scientists. The first cruise will be conducted on the French R/V Atalante in October 1994-1996. These cruises will be part of the graduate research of Mr. John Dunne.